Collaborative Research on Competition Between Public and Private Schools and Education Policy

9320988 Epple The purpose of this research is to develop and analyze a model of school choice at the primary and secondary level that incorporates competition between private and public schools. The model will be used to estimate the effects of various public policy alternatives such as vouchers and neighborhood versus open enrollment public schools. Students are characterized by an ability level and household income. A student's educational achievement is dependent on one's own ability and on the abilities of his classmates. The model characterizes the sorting of students by income and ability across schools in the public and private school sectors, taking into account financial aid policies of private schools. A computational model paralleling the theoretical model is developed and used to explore properties of the model and investigate policy predictions. This research is important because it will shed light on the consequences of an educational system which incorporates a greater degree of school choice at the primary and secondary levels. *** 9320980 Romano The purpose of this research is to develop and analyze a model of school choice at the primary and secondary level that incorporates competition between private and public schools. The model will be used to estimate the effects of various public policy alternatives such as vouchers and neighborhood versus open enrollment public schools. Students are characterized by an ability level and household income. A student's educational achievement is dependent on one's own ability and on the abilities of his classmates. The model characterizes the sorting of students by income and ability across schools in the public and private school sectors, taking into account financial aid policies of private schools. A computational model paralleling the theoretical model is developed and used to explore properties of the model and investigate policy predictions. This research is important because it will s hed light on the consequences of an educational system which incorporates a greater degree of school choice at the primary and secondary levels. ***